Engineering Research Equipment Grant: Complimentary System and Interface for Algorithm/Program Development for Supercomputing

Funds are provided (partial) for the purchase of workstations which will increase the efficiency of the local computing facilities as they interface the national supercomputing centers. The enhanced computing power will initially be used for studies such as the impact of deformable bodies and deformable bodies and deformable body-turbulent fluid interactions. Other near term uses will be in the simulation of the pultrusion process, in constructing a generic chassis dynamics model and in high temperature composite material mechanics.